Research Experiences for Undergraduates at the University of Denver

Dr. Robert D. Coombe and other members of the Chemistry Department of the University of Denver are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry- analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is that one of the research areas is on the chemistry of urban atmospheres-a problem area for this region.